SHF: Small: Collaborative Research: Lighthouse: Resource-Aware Advisor for High-Performance Linear Algebra

This research will study ways to ease the production and
use of high-performance matrix algebra software. Matrix algebra
calculations constitute the most time-consuming part of simulations
in diverse fields, and lowering the runtimes of those computations
can have a significant impact on overall application performance. The
process of converting matrix algebra from algorithm to high-quality
implementation is, however, a complex one. At each step, the code
developer is confronted with a myriad of possibilities, many requiring
expertise in numerical computation, mathematical software, compilers,
and computer architecture. In response to these difficulties, the PIs
have developed a prototype taxonomy implementation entitled Lighthouse,
which is a guide to the linear system solver routines from the software
package LAPACK. It is the first framework that combines a matrix algebra
software ontology with code generation and tuning capabilities. Its
interface is designed for users across a spectrum of disciplines, career
levels, and programming experience.

The PIs will dramatically extend the Lighthouse framework in a number of new directions.
First, they will construct a general taxonomy of software that can be used to build
highly-optimized mathematical applications. The taxonomy will initially
provide an organized ontology of software components for high-performance
matrix algebra and later other numerical software from a variety of
problem domains. It will serve as a guide to practitioners seeking
to learn what is available for their mathematical programming tasks,
how to use it, and how the various parts fit together. Second, the PIs
will apply a combination of source code analysis and machine learning
techniques to fully automate the generation of parameterized models that,
given representative inputs and a simple architecture description, can be
evaluated to identify methods from various libraries that best reflect
the user's resource and performance requirements. This automation is
critical for ensuring that the taxonomy is comprehensive enough to be
useful and that it accurately reflects the features and performance
of the latest versions of numerical libraries. Finally, the PIs will
advance the state-of-the-art in tuning tools by improving some of the
tools included in the taxonomy, broadening their ranges of functionality
in terms of problem domains and languages. This project will produce
the following impacts: greater performance by applications, enabling
both more discovery with available computing resources and greater
productivity of application programmers; greater understanding of the
interaction between architecture and algorithms; and an educational tool
for future computational scientists.